PATH: Supply Chain Support for the Commercialization of Innovative Products in the Residential Cosntruction Industry

Facilitating Supply Chain Support for the Commercialization of Innovative
Products in the Residential Construction Market
ABSTRACT:
The proposed research will construct a holistic business model for the commercialization of innovative products in the residential construction industry. Our research is motivated by recurrent failures of developers of new, innovative homebuilding products in bringing these products to market quickly and effectively. The diffusion of the new homebuilding techniques and the growth of new industries in the provision of construction materials are stifled by these failures. This research is directed at identifying the reasons for this inability and to prescribe solutions. Intellectual Merit: Our interdisciplinary effort will combine expertise from faculty and graduate students in the College of Architecture and Urban Studies, Pamplin College of Business at Virginia Tech and industry partners. Through collaborative work, our research team will design, evaluate and disseminate a business model for designing and managing supply chains that will overcome the barriers to the commercialization of new, innovative products for residential
construction. This model will be holistic in the sense that in will consist of several integrated sub-models that will comprise strategic, tactical and operational decisions associated with the commercialization of an innovative product. These sub-models will be of two types - rule-based models for strategic decisions related to market targeting, supplier selection, product configuration, distribution channel selection, and mathematical decision models for pricing policies and production and inventory planning. The models will be integrated through a common database so that decisions made at one juncture of the commercialization process impose parameters and constraints on decisions made at other junctures. The overall business model will enforce an optimization of the business plan that is coordinated across all levels of decision making.
Broader Impacts: The research will have broad impacts on the economy and workforce of the United States because it creates a holistic framework for commercialization of new, innovative products for the residential construction industry. Most contractors are small business owners, at least 25% of whom are minorities and women, who will benefit from the standardization of methodologies, educational programs and software products that will be derived from our research. The development of this workforce for the 21st century must include the opportunity to learn modern construction methods and installation techniques - many of which are practiced in other countries where commercialization of innovative products has been successful. HUD research has documented numerous failures of entrepreneurial business ventures in the commercialization of innovative construction products that were caused primarily by poor
business strategies of the entrepreneurs. Our research is directed at preventing these kinds of failures. The market for residential construction in the United States has entered a stage in which innovation will determine the viability of new construction in terms of its energy efficiency, construction costs, environmental acceptability and functionality. Furthermore, the United States economy is on the verge of becoming either a net importer or a net exporter of construction materials. The success of small-sized, limited-resource innovators will be a principal factor in the success of the construction industry and the national economy. The proposed work will support educational coursework at both the Department of Building Construction in the College of Architecture and Urban Studies and the Pamplin College of Business at Virginia Tech. Results from the data acquisition and analysis, and supply-chain decision models developed will be integrated in the course curriculum as case studies.